Ionomer-Containing Binary Polymer Blends

9400862 Weiss An ionomer blended with another polymer represents a special class of copolymer/homopolymer blends in which one of the components carries a charge. The presence of the ionic species may permit very strong, attractive intermolecular interactions with another polymer and/or strong intramolecular repulsions within the ionomer. Either phenomena may induce miscibility of two otherwise immiscible polymers. This research is directed at the characterization of the interactions and phase behavior of ionomer/homopolymer blends and specifically the following three objectives: 1. to understand the macrophase and microphase behavior of blends in which miscibility results from attractive intermolecular interactions or respulsive intramolecular interactions; 2. to define the role of the ionomer counterion, ionic concentration and polymer molecular weight on the phase behavior and properties of the blends; 3. to determine the effect of strong attractive or repulsive interactions on the spinodal decomposition kinetics and the resulting morphology of critical mixtures. Two systems will be investigated: (1) blends of lightly sulfonated polystyrene (SPS) and a methylated polyamide and (2) SPS and bisphenol A polycarbonate. The former is an example of a blend with specific attractive intermolecular interactions, and the latter is a blend for which miscibility occurs due to intramolecular repulsive effects. Model systems using low molecular weight compounds will also be used. The specific experimental techniques that will be employed include Fourier transform infrared spectroscopy, solid-state nuclear magnetic resonance spectroscopy, light scattering, small angle neutron scattering, small angle x-ray scattering, differential scanning calorimetry and dynamic mechanical analysis. %%% The work in this proposal will advance the field of polymer blends. This will lead to tougher, stronger plastics for use in aerospace, automotive, and household applications.